Planning Conference - Research Partnership; Tucson, Arizona,October-November 1991

The escalating costs of medical care are having a significant impact on the economy of the United State. An Industry/University Cooperative Research Center on Health Management could research how effective management would better control and minimize costs. A planning meeting will study if industry will support an Industry/University Cooperative Research Center on Health Management to be headquartered at Arizona State University. While the initial research interests of industry have been found to be focused on "New Ways of Delivering Patient Care", "Physician - Organization Integration" and "Implementing New Ways of Managing Quality", the meeting will assess industry interest and determine if the Center has sufficient support and merit to meet the Industry/University Cooperative Research Centers Program criteria. The Principal Investigator and Director as well as the proposed consortium of researchers from universities across the United States are recognized as eminent researchers and have the resources for this planning meeting. This project has been coordinated with Dr. Lynn Pollnow in the Division of Social and Economic Science at the National Science Foundation. The Program Manager recommends Arizona State University be awarded $9,840 for one year for this planning meeting.